Coordinated Analysis of the Thermosphere

The CEDAR ( Coupling, Energetics and Dynamics of Atmospheric Regions) program has as one of its main goals the understanding of the climatology of the thermosphere. In many of the program activities data are collected at different locations around the globe that pertain to this goal. This project is designed primarily to organize the community to better utilize the expanded data base available under CEDAR and to address some of the outstanding problems of the global structure and dynamics of the thermosphere. The initial goals will be a synthesis of the climatological maps characterizing the global mean state and diurnal characteristics of the thermosphere winds and temperatures obtained with incoherent scatter radars and optical Fabry-Perot interferometers at many different stations.